Low Noise Cryogenic Amplifiers for Particle Physics and Astrophysics

The PI proposes to build a new generation of low-noise amplifiers for use in cold dark matter searches. These amplifiers may also be useful in medical and astrophysical studies.